Novel graphene-based electronic devices integratible with silicon: synergistic research across materials, concepts, and implementation

The objective of this program is to demonstrate novel silicon-integratible graphene-based
devices, including the metal-oxide-graphene-silicon field-effect transistor to achieve drain
current saturation with a zero bandgap, and the graphene-insulator-graphene junction to achieve
resonance tunneling. These devices are expected to harness the enormous momentum behind
silicon manufacturing, exploit the unique advantages graphene while circumventing serious
challenges, thus find niche applications for technology entry, and eventually enter the
mainstream digital arena with full potential enabled by future progress.
Intellectual merit: This project represents coherent research efforts spanning materials, concepts,
and implementation. The materials growth research will seek answers to fundamental questions
about heteroepitaxy of two-dimensional layers. Novel device concepts, with deep roots in
proven ideas (modulation doping and resonant tunneling), uniquely take advantage of the
material properties. Implementation of the concepts incorporates realistic engineering
considerations from materials and processing to structures and modeling, and represents sound
engineering practice.
Broader impact: New discoveries will be introduced to undergraduate and graduate students, not
only to convey knowledge, but also to stimulate curiosity and enthusiasm. Outreach activities
such as the PI's partnership with a local high school will impact K-12 science and math
education. The nature of the proposed research provides an excellent multidisciplinary research
platform for graduate students. This project will enhance diversity by involving and training
female graduate students and by recruiting young minds from underrepresented groups. The
success of this research will potentially create US jobs by complementing the dominant, largely
overseas silicon-based fabrication with graphene-based niche technologies.